NSF Young Investigator: Constraint Programming Languages

Constraints are ubiquitous in many application areas including operations research (packing and scheduling), hardware design (circuit verification), computational linguistics, computer graphics, and software engineering. Constraint programming languages hold the promise of reducing the development time of these applications significantly, while preserving a reasonable efficiency. The purpose of this project to study the design, implementation, and applications of constraint programming languages. Both applicative and object-oriented languages are considered. Design issues focus on how best to support established paradigms for the applications considered. Implementation research considers the design of algorithms for constraint solving, entailment, and generalization for a variety of constraint systems. It also investigates the static analysis of constraint programming languages to reduce the performance gap between procedural and constraint-based languages, leading to the development of optimizing compilers for a variety of languages. Finally, applications validate the technology and implementation developed in the project and demonstrate the potential impact of the technology.